Acquisition of a Computational Chemistry Server

9601971 Shirts Brigham Young University This award from the Academic Research Infrastructure (ARI) Program will assist the Department of Chemistry & Biochemistry at Brigham Young University acquire a server for the existing computer system. This equipment will enhance research in a number of areas including the following: (1) statistical mechanics of liquids and colloids including inhomogeneous liquids using higher-order integral equations (2) molecular modeling of macrocyclic ligands for separations and semiclassical quantization of rovibrational spectra of highly-excited polyatomic molecules (3) molecular modeling of enantioselective binding of organic guests by cyclodextrin hosts, and (4) molecular dynamics of selective cation binding to charged and polar sites in proteins. A network of fast , modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.